RUI: Vibrational Structure of 140Ce, Acquired Polarization Effects in Fundamental Symmetry Experiments, and 127Xe Spectroscopy for Neutrino Detection (Physics)

This grant provides partial support for the collaboration of Prof. Jeffrey R. Vanhoy, U. S. Naval Academy, Prof. Sally F. Hicks, University of Dallas, and the University of Kentucky to study the collectively excited structure of 140Ce. Inelastic neutron scattering will be used to bombard isotopically enriched Ce targets for this work. The quadrupole and octopole excitations can be understood from measurements of elastic and inelastic differential neutron cross sections. Additionally, the states of 127Xe will be studied by means of the 127I(p,n) reaction because of the importance of 127Xe as a neutrino detector. An investigation will be undertaken as part of this grant to understand how neutron polarization is modified as a neutron beam passes through a thick aligned or polarized target. Neutron resonance parameters can be used to clarify aspects of polarized neutron transport through the targets used at LANL-LANSCE in parity and time-reversal violation experiments.